Numerical Linear Algebra and Eigenvalue Computations

This project will investigate numerical algorithms for solving moderate to large scale eigenvalue and generalized eigenvalue problems. A variant QR algorithm is being developed for solving the algebraic eigenvalue problem. The new algorithm avoids the phenomenon of shift blurring that dramatically slows the rate of convergence of the conventional multi-shift QR algorithm. The new approach shows promise of being able to use nearly any number of simultaneous shifts without substantial adverse affect on the converge rate. It should achieve "BLAS-3 71 speeds on computers with advanced architectures including hierarchical cache storage and instruction pipelining. In addition, the variant algorithm will use an early deflation procedure that promises to substantially reduce the number of Hessenberg QR steps needed. A generalized algebra of relations is being used to analyze and modify algorithms for moderately large scale eigenvalue problems. These include the inverse free spectral divide and conquer algorithm and other generalizations of the matrix sign function. The location/verification problem for the large scale eigenvalue problem will also be attacked. The initial approach will use a rational function approximation to the trace of a spectral projection in order to count eigenvalues inside a target region. The computational work required by this approach is expected not to be closely related to the number of eigenvalues in the region. This may make it attractive for locating eigenvalue clusters. In the verification setting, many eigenvalues in the target region have already been located by some other numerical method, e.g., a Krylov subspace method. In this case, the approximate trace of the spectral projector determines whether there are unlocated eigenvalues in the target region.